The Study of Ropelength and Knot Energies

DMS-0204826
Jason Cantarella and Joseph Fu

The project will study the geometry of knots which are critical
configurations for "ropelength", which is defined to be the quotient
of their length over the radius of their largest embedded tubular
neighborhood. Since the ropelength functional is not smooth, there is
no classical Euler-Lagrange equation describing the minimizers. The
primary aim of the projec666t is to provide an analogy to the
Euler-Lagrange equation: a "balance criterion", which shows that a
curve is ropelength critical if and only if the first variation of the
length of the core curve can be balanced by a system of self-contact
forces acting on the surrounding tube. The methods used to prove the
balance criterion (a generalization of certain aspects of tensegrity
theory to a class of "continuous tensegrities", using a version of the
Farkas alternative theorem for linear operators on Banach spaces)
promise rich applications in other areas of mathematics, such as the
study of convex curves, and of "knot energies".

A natural model for a rope with a circular cross-section is a space
curve surrounded by a non-self-intersecting tube of fixed radius. If
such a rope is tied in a knot, and the knot is pulled tight, the
resulting curve is a critical configuration for the "ropelength" of
the curve, which is defined to be the quotient of the length of the
curve over the radius of the tube. The project studies the geometry of
ropelength-critical curves using ideas from the theory of frameworks.
This theory studies simple engineering models of structures, and gives
a precise description of how external loads on a structure are
resolved into tensions and compressions of different structural
elements. The project views the tension in a tight knot as exerting a
force directed towards the inside of each curve of the rope, and aims
to show that such a curve is tight if this force can be resolved into
a system of self-contact forces acting on the surface of the tube.
This "balance criterion" has surprising consequences. Imagine a rope
stretched horizontally, like a clothesline. If another rope is passed
over the line, and pulled down until the pair is tight, the ropes form
four straight segments joined to a central region where the strands
curve around one another. One would expect the ropes to maintain
contact throughout this curved clasp, with the two points on the
inside of each bend touching one another. However, according to the
balance criterion, this cannot happen: there is always a small gap
between the two strands at the center of the turn. This model has
already been used in molecular biology to describe the behavior of DNA
strands; the new geometric information provided by the project will
help to refine and extend many other appications of this model in
physics, biology, and engineering.